SBIR Phase I: Development of an Indole Biosensor Using Insect Chemosensory Proteins

This Small Business Innovation Research (SBIR) Phase I research project aims to develop a rapid and sensitive detection system for Escherichia coli in water supplies, based on the production of indole by bacteria. The methodology takes advantage of chemosensory proteins that are sensitive to low quantities of indoles.

The proposed technology will enable testing of water supplies for E. coli contamination, and as such should provide a significant public health benefit.